Mathematical Sciences: P-groups & Infinite Dimensional Lie Algebras

This award supports research on several problems of finite p-groups, pro-p-groups, and infinite dimensional Lie algebras. All these problems are related to infinite-dimensional Lie algebras satisfying a polynomial identity and to Lie algebras with Engel's condition. This research is concerned with a mathematical object called a Lie algebra. Lie algebras arise from another object called a Lie group. An example of a Lie group is the rotations of a sphere where one rotation is followed by another. Lie groups and Lie algebras are important in areas involving analysis of spherical motion.